Publication of Four Volumes of Systematic Botany Monographs

This subsidy will allow publication of four volumes of Systematic Botany Monographs. The research for these monographs in plant systematics were part of doctoral dissertations previously funded by NSF. Publication of these volumes will permit dissemination of the research results to the botanical community.